Curvature and Metric Measure Geometry

Abstract for DMS - 0104128

This project is concerned with the structure of smoothly curved spaces
on a small but definite scale, with the partial reularity and singularity
structure of limit cases of such spaces, with the relations between analysis
and geometry on metric measure spaces, and with the structure of
nonpositively curved spaces. Specifically, we will continue our investigations
of manifolds with Ricci curvature bounded below and their weak limits,
of Einstein manifolds and their weak limits, of metric measure spaces
for which a doubling condition and Poincar\'e inequality hold, and of
compact nonpositively curved manifolds whose volume is sufficiently small.

Smoothly curved spaces (the higher dimensional generalizations of curved
surfaces) play an important role in geometry and in physics.
A central issue is to describe the ``worst possible'' examples of spaces
the curvature is controlled in some specific fashion, and,
what is very closely related, to describe the kinds singularities which can
form in limiting cases. This study is the main concern of our project.
An example (from a somewhat different domain)
of what we mean by the ``formation of singularities'',
one can think of the formation of ``black holes''.